Continuation of Phytotron Operations

The Phytotron at Duke University is a large integrated facility for biological research under controlled environments. Central mechanical and environmental monitoring equipment operated by a trained professional staff provides excellent and dependable environmental control. The facility is available to all scientists who require well-controlled environmental conditions for their experiments. Future developments planned for the facility are to install new lighting and control systems to improve the quality of environmental control and the dependability of equipment. A new computerized monitoring system will provide more environmental sensing and more frequent updating of chamber conditions. Energy conservation measures initiated by the staff and by the Duke University Energy Management Section will be continued. Efforts will be continued to develop unique analytical capabilities. In addition to the high-energy carbon-11 analytical facility now in operation, a mass spectrometer facility will be installed by Duke. Existing storage space will be renovated by the University into modern physiological research laboratories to support a growing program in ecological research. This project will provide funds for the continued basic operation of this national environmental control facility. NSF funds will be supplemented by space charges to users and by an operational budget from Duke University.